CAREER: On the Design of Randomized Algorithms for Robust Control Problems

ECS-9702963 Tikku Robust multivariable control analysis and design have been central problems in control theory over the last fifteen years. Most of the robust control research has been dominated by worst-(!a-,;e deterministic formulations of the control analysis and design problems. Despite the considerable successes of the worst-case deterministic approach such as Hoo 16 and 12,13 control theory, most of the robust control analysis and design problems involving real parametric and/or structured uncertainty remain open. Analytical results, such as the celebrated Kharitonov theorem 45 , apply to rather specialized problems. For general and comprehensive formulations such as the structured singular value theory --- u theory ---- analysis and design problems have turned out to be. very difficult, and the focus of research has been on obtaining upper and lower bounds on the quantities of interest. Recent research on the computational complexity of robust control analysis and design problems indicates that these difficulties are, most likely, inherent to the worst-case deterministic problem formulations rather than a lack of ingenuity. In view of these results, it appears we must abandon attempts to design deterministic algorithms that perform well on every problem instance, and/or change the worst-case robust control paradigm The focus of this proposal is on the design and analysis of randomized algorithms for certain very general robust control problems. A randomized algorithm is an algorithm that makes random choices during its execution. Randomized algorithms have received considerable attention in the last twenty years 33, 55 Surprisingly efficient randomized algorithms have been designed for problems in diverse areas such as number theory 65, 73 , computational geometry 57, 9 , parallel and distributed computing 39 , pattern matching 37 , approximate counting problems 34, 35, 36, 74 etc.. We contend the successes of randomized algor ithms in solving difficult computational tasks in such diverse areas, and the apparent shortcomings of our current approaches to robust control are compelling reasons to focus research efforts on the design of randomized algorithms. Our research will take two directions. The first will focus on the design of (Las Vegas type) randomized algorithms which deliver the worst-case guarantees we seek in the traditional robust control paradigm, and, at the same time, perform well (e.g. have short execution times) with high probability for every possible problem instance. The second will focus on the design of (Monte Carlo type) randomized algorithm that deliver probabilistic statements of the form that a "certain (stability/performance) property holds for most of the systems in a prescribed set (given by uncertain parameters in compact sets, unmodeled dynamics given by balls in function spaces, etc.) with a high degree of confidence." We intend to investigate the application of randomized algorithms to a host of heretofore intractable robust multivaxiable control problems including: 1) m analysis problem; 2) m synthesis problem; 3) fixed order m synthesis problem; 4) reduced order Hoo. design problem; 4) Hoo model reduction problem. The focus of our education activities over the next four years will be on the design/development of four new courses: an introductory course on randomized algorithms; a class on the application of randomized algorithms to robust control problems; a class on linear matrix inequalities in control theory; a course on modeling and system identification. The introductory course on randomized algorithms will establish necessary background in the area and will present randomized algorithms from various application areas. It will play a vital role in preparing students to implement such algorithms. The follow up course on randomized algorithms will stress the application of randomized algorithms in robust control and will present the la test developments in the area. The course will target graduate students who want to conduct research in this area.